Doctoral Dissertation Research in Sociology

This dissertation research seeks to explain why the incidence of wildcat strikes in the automobile industry declined from 1946 to 1974. The objectives are (1) to describe local strikes occurring within the auto industry over this historical period, (2) to look at changes in the industry itself as it is related to the incidence of wildcat strikes, and (3) to see how changes in the way work was organized might have affected the likelihood of strikes. The project will contribute to an understanding of why and when strikes occur. It will also result in an excellent data base on post World War II strikes in the U.S. automobile industry.